Academic Research Infrastructure: Acquisition of an ATM- based Parallel Computing Infrastructure

9601503 Reddy, Sudhakar Andersland, Mark University of Iowa Academic Research Infrastructure: Acquisition of an ATM-based Parallel Computing Infrastructure This Academic Research Infrastructure award supports the acquisition of a dedicated, heterogeneous, high speed computer network for the support of research projects in: 1. Networked based distributed computing (CROWN project). 2. Distributed computing in VLSI CAD. 3. ATM network performance in a mixed traffic environment.